Isotope Enrichment Via Electron Attachment

This project represents continuing support by the Organic Dynamics Program for the research of Gerald R. Stevenson and Richard C. Reiter of Illinois State University. The work involves the establishment of equilibria between neutral compounds and their negatively charged counterparts. Since the position of equilibrium varies with particular isotopes, this has led to a new method for isotope separation. This research is directed at developing a thermodynamic scheme that can be utilized for the separation of molecular isotopic isomers. The Illinois State group has previously observed that the solution state and solid state electron affinities of conjugated organic materials differing only by the substitution of one or more atoms with isotopically different atoms experience rather dramatic (up to several hundred cal/mol) changes. This means that the reduction of organic isotopic isomers (e.g., benzophenone and benzophenone-O-18) with deficient molar amounts of alkali metal in solution will result in a competition between the two isotopic isomers for the added electrons. Since the solution electron affinities of the two materials are not the same, the partial enrichment of the O-18 isotope can be achieved as easily as separating the radical anions from the neutral molecules. This method of isotope enrichment will be explored for a variety of isotopes including C-13, O-18 and N-15. Further, a statistical thermodynamic model will be developed that can be utilized to predict the equilibrium constants for electron exchange between the isotopic isomers.